INTEGRATED SENSING: Distributed Architecture for a Voluble Intelligent Environment

Abstract

The goal of the proposed research is to implement a
conversational intelligent environment
containing a distributed array of active cameras and other sensors,
and communicating with users via natural dialogue, augmented where useful
with imagery and pointing devices.
This artificial spatial intelligence, termed a
Voluble Intelligent Environment or VIE, will actively obtain information about,
and provide assistance within a real physical domain.

The project requires grounding natural language understanding in
machine perception.
A major difficulty is that outputs supplied by
current perceptual algorithms are too low-level
to serve as primitives for traditional understanding and reasoning systems.
To address this, the PIs will integrate the results of machine vision
and other perceptual functions into mid-level representations termed
"perscripts", which represent items of perceptual information of the sort that
would typically be described by a phrase or simple sentence.

The project also requires advances in
distributed systems technology to permit the
various perceptual, computational, and communication components to
be efficiently and flexibly configured.
The integration framework will be based on
a prototype distributed resource interface, InterWeave,
developed at the University of Rochester.
Interweave provides an efficient implementation
of a network-wide global name/address space that directly supports
the proposed approach to grounding language in perception.

The work will be validated in
a ``Household Assistant'' application that provides occupants of a
``smart house'' with information useful in activities of
daily living (such as ``where did I leave my glasses?'' or
``did I take my meds?'').
This application is being developed in conjunction with the University
of Rochester Center for Future Health.
It addresses needs of
the elderly and the disabled, and has the potential to have a significant
economic impact as part of an overall system that unloads caregivers for
this population.